STTR Phase I:Augmenting the Lifetime of Batteries for Implantable Devices

This Small Business Technology Transfer (STTR) Phase I project addresses the feasibility of harnessing the internal biomechanical forces using piezoelectric transducer technology to power implanted devices such as cardiac pacemakers. The project will advance the develop of in vivo energy harvesting devices as power sources in general, for medical appliances in human and veterinary health sciences.

The research seeks to increase the longevity of implanted devices that require battery power for function. The project will alleviate the need for repeated surgeries for battery replacement, increase the functionality of the implant by providing more diagnostic output and burst mode power and to increase the overall reliability of the implant due to the back up system in place.